CAREER: Cluster algebras, total positivity, and physical combinatorics

This project concerns the application of algebraic and combinatorial tools
in two settings:
(1) cluster algebras and totally positive varieties: in particular, the
study of the Fomin-Zelevinsky positivity conjecture and construction of
canonical positive bases for cluster algebras; and the study of the
topology of the totally non-negative part of a flag variety.
(2) physical combinatorics: in particular the exploration of connections
between the asymmetric exclusion process, orthogonal polynomials, soliton
solutions of the KP equation, and total positivity on the Grassmannian.

From a broader perspective, this research project will reinforce
interactions between combinatorics, representation theory, statistical
physics, and integrable systems, with hopefully a significant impact on
all fields. In the longer term, it may also have applications to the
mathematics of traffic flow, translation in protein synthesis, or shallow
water waves. Integrating education and research, the PI will organize
student seminars and a two-week summer school on cluster algebras, a field
containing many accessible open problems. This project also seeks to
achieve two other educational goals: increasing the visibility of women
mathematicians, via a series of Colloquium lectures at Berkeley given by
distinguished women; and bridging the student-faculty divide at Berkeley,
by organizing activities that will bring together undergraduates, graduate
students and faculty.